Oceanographic Instrumentation 1994

Proposal #: 93-21840 The PIx requests funding to purchase shipboard instrumentation in support of NSF-funded research. The instruments will be used aboard the R/V THOMPSON, a 274 foot vessel, which is owned by the Navy and operated by the University. Instrumentation funded includes fiber optic hubs for the computer network, a CTD underwater unit, a 24-position rosette pylon, a thermosalinograph, a Swath mapping workstation, and two altimeters. The instrumentation requested is required for support of NSF-funded cruises aboard the R/V THOMPSON during 1994 and will enhance the scientific capability of the vessel in the future.